Scalable Enterprise Systems: Measurement Methodology of Scalable Enterprise Systems (MOSES)

This grant provides funding to develop a formal methodology for the measurement of scalability of enterprise systems. The project seeks to create a taxonomy of scalability attributes to classify and describe each aspect of the enterprise in an unambiguous, clear, and concise manner. Measurement theory will be applied to generate a quantification of magnitude for scalability aspects, to generate scales, and to define relationships to map within the attribute's domain. Finally procedures for acquiring the measurement from an enterprise system will be conducted. This research project will adhere to the scientific process and after formulating the multi-dimensional definition of scalability and developing scales we will empirically validate the measurement methodology using select industry test cases.

The primary goal of the MOSES project is to address the issues of defining and measuring scalability of the enterprise. The specific objectives of the MOSES project are: (1) provide a formal multidimensional definition of scalability, (2) develop a measurement methodology, (3) develop supporting software tools, and (4) illustrate coupling the proposed methodology and software tools with a target enterprise environment. By measuring scalability managers, engineers, and system designers will be able to verify claims of software vendors, to identify areas in the enterprise for improvement with respect to scalability, to compare different system designs, to design scalability into an enterprise system, and to benchmark enterprise systems. A more formal foundation to defining and measuring enterprise system scalability will enable systems designers to better understand and predict the enterprise's performance and contribute to better enterprise system designs.